NEESR-CR: Topographic Effects in Strong Ground Motion - From Physical and Numerical Modeling to Design

This award is an outcome of the NSF 09-524 program solicitation "George E. Brown, Jr. Network for Earthquake Engineering Simulation (NEES) Research (NEESR)" competition and includes Washington State University (lead institution), Drexel University (subaward), Georgia Institute of Technology (subaward), University of Arkansas (subaward), and University of Puerto Rico, Mayaguez (subaward). This project will utilize the NEES equipment sites at the University of California, Davis and the University at Texas, Austin.

Topographic effects refer to the modification and amplification of seismic ground motion in the vicinity of topographic features such as hillsides, ridges, and canyons. This well-documented phenomenon has yet to be addressed in design codes. Because tectonics and topography are closely related, most seismically active regions of the world are marked by significant topographic relief. In recent decades, population growth and scarcity of undeveloped metropolitan land have changed urban land use patterns and placed an increasing number of people and infrastructure assets in areas susceptible to topographic effects during earthquakes. Although it is widely recognized that topographic amplification can elevate seismic risk, there is currently no consensus on how to reliably quantify its effects. Lack of consensus has precluded development of acceptable guidelines on how to account for this phenomenon in practice, thus leaving an important factor contributing to seismic hazard unaccounted for in routine design. Until now, a major impediment towards understanding and realistically modeling topographic effects has been the lack of a statistically significant number of seismic recordings from densely instrumented sites with topographic features. Moreover, while existing theoretical models are generally capable of qualitatively predicting the effects of irregular topographic features on seismic ground motion, there is still significant quantitative disagreement between predictions and observations. This research addresses this problem with a study of topographic amplification of ground motion that will include a comprehensive and integrated program of experimental simulations, field measurements, empirical data analysis, and numerical modeling. These research methods, applied together in a framework now made possible by NEES, will quickly and substantially advance the understanding of topographic effects. This new understanding will in turn permit the development of data- and analysis-driven guidelines to account for these effects in engineering design, building code provisions, and seismic risk and microzonation studies.

Intellectual Merit: This research integrates knowledge about topographic effects gained from: (i) centrifuge model testing (using the NEES geotechnical centrifuge at the University of California, Davis) of topographic features, (ii) field data acquired with temporary, locally-dense instrumentation arrays (using the NEES mobile equipment at the University of Texas, Austin and broadband sensors from the Incorporated Research Institutions for Seismology (IRIS) Program for Array Seismic Studies of the Continental Lithosphere (PASSCAL)) recording frequent and predictable stress-induced mining seismicity in a mountainous region of Utah, (iii) rigorous numerical modeling studies, and (iv) statistical analyses of the Next Generation Attenuation strong ground motion data base. It is envisioned that this work will result in: (i) an order-of-magnitude increase in the amount of high quality data on topographic amplification, (ii) greater fundamental understanding of this phenomenon, (iii) quantification of topographic effects on ground motions, (iv) improved attenuation relationships that account for topographic amplification, and (v) widely adopted guidelines and provisions to account for this seismic hazard in practice. Ultimately, the outcomes of this research will allow seismic risk to be more effectively managed in terms of ground motion quantification and site response prediction.

Broader Impacts: This project implements a new Bridge to Doctorate Program (BDP) geared towards educating underrepresented students in the field of earthquake engineering. The BDP can also serve as a model for increasing diversity in large collaborative science, engineering and technology research projects. While this research focuses on issues related to seismic response, the fundamental knowledge will have relevance to other hazards, such as landslides in natural terrain and the stability of dams, levees, and embankments. Data from this project will be archived and made available to the public through the NEES data repository.